Presidential Young Investigator: Chemical Microsensors to Monitor Neurotransmitter Dynamics

This project is in the general area of analytical and surface chemistry and in the subfield of biosensors. This research is designed to develop novel microsensors which can provide real-time information about dynamic changes in the concentration of amino acid and peptide neurotransmitters and metabolites which occur in the extracellular fluid of the mammalian brain. It is proposed that these species will be detected indirectly through their interaction with other species which produce a measureable response. Initial detection schemes will use enzyme dehydrogenases contained within a 100-um diameter dialysis fiber in combination with electrochemical and/or laser-induced fluorescence detection. Such an approach should allow detection of chemical species at the subfemtomole level. This five year continuing grant to the University of California at Riverside for the support of Professor Kuhr as a Presidential Young Investigator is designed to promote his rapid and effective growth as an independent researcher in the area of analytical biosensors.